PostDoctoral Research Fellowship

This award is made as part of the FY 2015 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Christine Lee is "The colored Jones polynomial and surfaces in link complements." The host institution for the fellowship is University of Texas at Austin, and the sponsoring scientist is Dr. Cameron Gordon.